Peptide Biosynthetic Enzyme Expression in Hypertension and Hyperactivity

This is a Research Planning Grant to enable Dr. Braas to initiate independent studies of peptide biosynthetic enzyme expression in hypertension and hyperactivity, using inbred strains of rats which express spontaneous hypertension as a model system. It is anticipated that this award will help Dr. Braas obtain the preliminary results necessary to launch an independent research career.